A Cogeneration Instrumentation Laboratory.

This project permits undergraduate mechanical engineering students to carry on experiments on a small-scale cogeneration system that is instrumented and interfaced to a data acquisition system. Student experiments and projects involve both thermodynamic and economic evaluation of cogeneration concepts. They also learn about techniques of computer assisted data acquisition in a laboratory environment. This award is being matched by an equal sum from the grantee.